Postdoctoral Fellowship: MSPRF: Tate and Bloch-Kato Conjectures for the Cohomology of Shimura Varieties

This award is made as part of the FY 2024 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Naomi Sweeting is “Tate and Bloch-Kato Conjectures for the Cohomology of Shimura Varieties”. The host institution for the fellowship is Princeton University and the sponsoring scientist is Christopher Skinner.